Acquisition of Oceanographic Sampling Equipment for the Sea Education Association's Research Vessel, SSV Corwith Cramer

This Major Research Instrumentation award to Sea Education Association in Woods Hole, Massachusetts provides funds for acquisition of oceanographic research instrumentation for use on the SEA vessel SSV Corwith Cramer. Instruments supported here will be used in the SEA Semester and related seagoing programs, involving undergraduates, K-12 students and teachers in hands-on marine research and seamanship. Specific instruments supported here include an acoustic current profiler, sonars for sounding and sub-bottom profiling, sensors for analysis of physical, chemical and biological properties of surface and subsurface waters, a computer network for data acquisition and analysis, and other instruments for research and training. The project is supported by the Division of Ocean Sciences at NSF. Sea Education Association will provide cost-share support from non-federal funds for a portion of total project costs.